CAREER: Constraining the high-latitude ocean carbon cycle: Leveraging the Ocean Observatories Initiative (OOI) Global Arrays as marine biogeochemical time series

This project seeks to improve understanding of the marine carbon cycle in the high latitude (polar) ocean using data from the Ocean Observatories Initiative (OOI). This Initiative has provided continuous physical and biogeochemical sensor data at two locations for several years. The science team will use biogeochemical data collected by the OOI sensors to monitor long term changes in carbon cycling processes. In addition, this CAREER project will develop data products and workflows to improve the usability of these data. Increased use of OOI sensor data will improve detection of trends useful for predicting fisheries, human and ocean health, and storm and disaster preparedness. The project includes several educational activities aimed at introducing undergraduates to oceanographic research and increasing data literacy. A series of educational videos will be created to showcase the use and application of OOI data. The videos will be used in college level courses at three universities. Over its 5-year duration, this project will provide training opportunities for eight undergraduate students, two doctoral students, and one postdoctoral researcher.

This CAREER project will utilize marine biogeochemical time series data from Ocean Observatories Initiative (OOI) locations in the subpolar North Atlantic and subarctic Northeast Pacific to evaluate the relative roles of biological, chemical, and physical processes driving the ocean’s carbon sink. The project seeks to improve the usability of OOI biogeochemical (BGC) sensor data and leverage these marine BGC time series data to determine changes in carbon cycling processes in the subpolar North Atlantic and subarctic Northeast Pacific Oceans. This research is key for predicting long term perturbations and for understanding how changes in carbon cycling in these regions will influence carbon storage. The objectives of this project are to: 1) quantify the rates and drivers of carbon cycling and storage in the subpolar North Atlantic and subarctic Northeast Pacific Oceans and 2) determine the role of biological, chemical, and physical processes over >10 years at each array site. The high temporal resolution BGC data collected by the arrays will improve understanding of the sampling resolution needed to capture key carbon cycling processes and test the hypothesis that short-time scale events during spring phytoplankton blooms and strong winter storms play a significant role in the overall annual carbon cycle.